Engineering Research Equipment Grant: Electrokinetics Analyzer

This award partially supports acquisition of instruments for measuring surface charge of colloidal particles and electrophontic mobility of colloidal particles. The instruments will be used in studies of the dielectric properties of colloidal dispersions, kinetics of floc formation and breakage, and rheology of concentrated dispersions. Better control and characterization of particles should lead to improved processing capabilities of fluids having complex microstructure.